Addition of DCPT as a Reearch Site of I/U CRC for Pharmaceutical Processing

This award to Dusquene University Center for Pharmaceutical Technology (DCPT) is to plan to join the Industry/University Cooperative Research Center (I/UCRC) for Pharmaceutical Processing Research (CPPR), a multi-university center that includes Purdue University, the University of Connecticut, the University of Puerto Rico, and the University of Minnesota.

The purposes of the Center are to explore and develop new technology for pharmaceutical processing, to foster collaborative research projects between academic and industrial scientists, and to promote an interdisciplinary approach to training students in pharmaceutical processing research and development.